A Metabolically Active Transient Storage Model for Predicting Nutrient Retention in Streams

A Metabolically Active Transient Storage Model
for Predicting Nutrient Retention in Streams
Roy Haggerty, Alba Argerich, David D. Myrold, Eugènia Martí & Nancy B. Grimm
Transient storage has become one of the most important concepts in hydrology in the past 25 years,
helping to predict solute and heat transport in streams, and it is one of the most frequently quantified
processes in stream ecology. However, recent research shows that transient storage has minimal
explanatory power for nutrient retention in streams. This is a paradox because nutrient retention is
closely tied to aerobic metabolism, which in turn is very strongly tied to hyporheic exchange, a major
component of transient storage. Further, other processes that retain nutrients (sorption of phosphorus,
and anaerobic microbial processes) also should happen preferentially in transient storage zones.
Consequently, it is surprising that transient storage has not been a better predictor for nutrient
retention.
We hypothesize that nutrient retention is mostly associated with transient storage that is
metabolically active. Metabolically active transient storage (MATS) is defined as water with velocity
much slower than the mean in which there is significant primary production or respiration. We
predict that MATS will include much of the hyporheic zone and some benthic areas of pools. Given
known mechanistic relationships between nutrient transformations and metabolism, we predict that
MATS zones will also be hotspots for nutrient retention.
We have done preliminary work to develop a MATS-sensitive tracer, resazurin. Resazurin quickly
reduces to resorufin in the presence of aerobic respiration. Our tests indicate that it is feasible to use
resazurin in streams to measure MATS, and that a standardized methodology to measure MATS can
be adopted similar to what is commonly done with a conservative tracer (e.g., NaCl) to measure
transient storage.
We will conduct a series of column and mesocosm experiments to relate nutrient retention to
metabolism (focusing on respiration). We will also test the relationship between resazurin reduction
and respiration in different substrates and multiple sediment samples, and further characterize
resazurin sorption, photodegradation, and degradation. We will then conduct field experiments,
adding nutrients and resazurin in streams. These will primarily be conducted in heterotrophic, lownutrient
streams of Oregon, but a few experiments will also be conducted in Arizona and Spain to
add a gradient in metabolism and dissolved inorganic nitrogen to phosphorus (DIN:P) ratio.
Injections will also be carried out at different times of the year encompassing a metabolism gradient
within the Oregon streams, so that our interpretations are not limited to inter-stream variability.
Streams will be surveyed and geomorphically characterized to help control for physical differences.
A preliminary model of MATS is presented, and will be further developed during the study. A
computer code will be updated and released that can model and do parameter estimation for reactive
transport in streams in the presence of MATS, where the timescales of exchange may be the
conventional exponential distribution or another distribution.
Broader impact: Correlation of nutrient retention with MATS would improve our understanding of
the hydrologic component of nutrient retention and help us to predict transport of nutrients in streams.
Resazurin reduction could prove a valuable tool for measuring MATS, and open the way for a tracerbased
quantification of respiration. Lastly, we will work with an elementary school to gauge a stream
and collect stream nutrient data as part of their science curriculum. The data are important to the
City of Corvallis because of a proposal to use a large quantity of treated wastewater for irrigation in
the watershed that the stream drains, and there is no gauge.